CAREER: Transforming Computer System Design

This project attacks the high costs of architecting, implementation,
and verifying computer systems as well as developing system and
application software through the use of FPGA-Accelerate Simulation
Technologies (FAST) simulators. Rather than having to develop a
distinct set of simulation and evaluation tools for each task, FAST
simulators have been demonstrated to be both accurate enough and
sufficiently easy to write to be useful to architects and are both
full-system and fast enough to be useful to software developers.
Initial FAST prototypes were not, however, directly useful to computer
system implementation and verfication. In addition, there is no
mature methodology to verify FAST simulators themselves.

The specification of a FAST simulator, however, contains sufficient
information to specify a set of implementations, thus begging the
question of whether one or more implementations could be automatically
generated from such a specification. This project is developing a
tool chain to automatically transform a FAST simulator specification
into an implementation, thus coupling architecture, implementation and
software development, permitting all to be co-developed and making it
easy for each to influence the other two. An implementation can also
be verified using conventional methods, meaning such an automatic
transformation provides a conventional method to verify FAST
simulators.